Race, Mass Media Effects and Electoral Behavior

This special minority award will give Ph.D. student Keith Reeves additional flexibility in pursuing his graduate studies and research initiation in political science. This award will strengthen minority research participation in this area.